Ultracentrifuge and Electrophoresis Equipment for Undergraduate Instruction in Genetics, Molecular Biology, and Biochemistry

Lebanon Valley College will strengthen its major degree programs in biochemistry and biology by incorporating a new experiment into an existing genetics course to demonstrate the principles of ultracentrifugation and its application to DNA purification; introducing a new advanced course in molecular biology; and implementing a new project-oriented sequence of experiments in an existing biochemistry laboratory course. In order to carry out this plan, Lebanon Valley College will acquire a Preparative Ultracentrifuge, Equipment for DNA Electrophoresis, a Microcentrifuge, and a Biological Safety Hood. The increasing importance of molecular genetics in both basic and applied biochemical research makes the introduction of its concepts and methodologies into the curriculum necessary.